Acquisition of a Telescope and Dome System for Research and Training

AST-0115895

Caton, Daniel B.
An astronomical telescope and dome system for research and training students will be developed at Appalachia State University. Appalachia State University is a small non-PhD granting institution dedicated primarily to teaching. Research will be centered on measurements of eclipsing binaries and the detection of planets at the L4 and L5 points within eclipsing binary systems. The telescope will also be used to measure planet occultation of stars to characterize planets.
***